CAREER: Lossless, Near-Lossless and Lossy Plus Lossless Image Compression

This project involves a career development plan that incorporates a balance of research and educational activities. The principal area of research proposed is lossless image compression. The goal is to develop lossless image compression techniques that integrate lossy and lossless compression in a single frame-work, providing state-of-the-art lossy and lossless compression. Such techniques will be of great value for specific applications like teleradiology and the World-Wide-Web, and for applications in ``network-centric'' computing in general. Part of this research will involve collaborative activity of an international nature. Also proposed in the research plan is the development of near-lossless image compression schemes that give quantitative guarantees about the loss in reconstruction. Near-lossless compression techniques can result in significant reduction in bit-rates while preserving the integrity of scientific images with respect to the post-processing operations that are typically carried out on such images. Collaboration with earth and space scientists will be an integral part of this activity. The educational component of the proposal addresses the broader field of multimedia communications. The main objective of the educational plan is establish a multimedia communications laboratory that supports education and research activities of a multidisciplinary group of students and faculty. A sequence of multidisciplinary courses in multimedia communications are proposed to be developed. Also proposed are a series of activities like summer internships, departmental colloquia, research experience for undergraduate site, etc. that go above and beyond the normal academic year faculty responsibilities. The objectives of the educational plan are in tune with department needs and priorities and well integrated with the research goals of the PI.